Interaction of Cytoplasmic Membrane Energy Transducer With Outer Membrane Receptors

9724049 Postle Energy for the active transport of iron-bearing siderophores, vitamin B12, and other ligands across the outer membrane of Gram-negative bacteria is transduced from the cytoplasmic membrane to high-affinity outer membrane transporters by a cytoplasmic membrane protein complex consisting of TonB and a set of auxiliary proteins. Postle and colleagues have previously demonstrated, using in vivo crosslinking, that Escherichia coli TonB directly contacts both cytoplasmic membrane proteins and the outer membrane receptors. Preliminary data, which are based on separation of cytoplasmic and outer membranes by sucrose density gradient fractionation, indicate that TonB can associate with the outer membrane in the absence of the cytoplasmic membrane. These results suggest that TonB might shuttle from cytoplasmic to outer membrane in the process of energy transduction, and thus serve as the springboard for characterizing the interactions between TonB and the outer membrane. By exploiting the ability of TonB to form stable associations with the outer membrane, it should be possible to determine the nature of these associations. Biochemical approaches will be used to define TonB-outer membrane interactions and their relationship to the process of energy transduction. The cytoplasm of Gram-negative eubacteria is surrounded by a protective envelope consisting of three concentric layers: a cytoplasmic or inner membrane; a cell wall composed of peptidoglycan (murein), proteins, and polysaccharides; and an outer membrane. Between the inner membrane and the wall is the periplasmic space, which is known to contain a number of important enzymes. This envelope poses a barrier to harmful agents in the environment. However, it also poses a barrier to the bacterium's access to vital nutrients such as minerals and vitamins from the environment. The bacteria possess a complex mechanism for selectively bringing such nutrients into the cytoplasm. This mechanism inv olves active (i.e., energyrequiring) transport of siderophores (carrier proteins that bind to nutritionally vital minerals such as iron), vitamin B12 and other ligands across the outer membrane. The source of the energy for this process comes from cytoplasmic metabolism, and thus this mechanism requires the transduction of energy from the cytoplasmic membrane (transduction of the membrane protonmotive force) across the periplasmic space to the outer membrane. This energy transduction involves a membrane protein complex consisting of a protein called TonB plus other associated proteins. TonB was long thought to be located exclusively in the cytoplasmic membrane. However, using in vivo crosslinking and subcellular fractionation, Dr. Postle showed that TonB has direct contact with both cytoplasmic membrane proteins and the outer membrane receptors, and that TonB can exist in 3 distinct milieus: by itself in the cytoplasmic membrane, in contact with both membranes simultaneously, and by itself in the outer membrane. Further work will use genetic, biochemical, and other approaches to define the interaction between TonB and the outer membrane and to relate this to the process of energy transduction. The significance of this work extends far beyond merely the function of TonB. In Gram-negative bacteria, there are more than 100 distinct transport systems where cytoplasmic membrane proteins are postulated to interact with outer membrane proteins (e.g., multidrug efflux pumps, excretion of colicins, hemolysins, and degradative enzymes). The proposed studies on TonB may well be directly relevant to these other systems also. These studies are therefore anticipated to greatly enhance our understanding of how bacterial metabolism is linked to the environment. ***